US-Cameroon Cooperative Research: Theoretical Research on Nanostructure Growth

INT-0097037
Mullen

This award supports an 18 month collaborative research project between Professor Kieran Mullen, with the Department of Physics and Astronomy at the University of Oklahoma, and Professor Jean-Marie Ndjaka, with the Department of Physics at the University of Yaounde in Cameroon.

Professors Mullen and Ndjaka will theoretically investigate the self organization and elastic properties of semiconductor nanoscale structures. The project will utilize Professor Mullen's expertise in semiconductor physics and Professor Ndjaka's background in magnetic systems and correlated electron systems. This grant will also enable Professor Ndjaka to gain additional experience in the applied theory of nanostructure growth. Anticipated results should provide additional support for the experimental study of quantum dots. The project will also foster a long-term collaboration between the two universities, which will enhance the research programs at both schools.